Regulation of Microtubule Organizing Center Function

Recent evidence has implicated a role for the phosphorylation and dephosphorylation of specific MTOC components in regulating the functional activity of the mitotic apparatus. The purpose of this proposal is to define the functional properties of the centrosome and kinetochore with respect to the nucleation and capture of microtubules respectively, to determine the role of phosphorylation of centrosomal or kinetochore components in modulating their functional properties, and to identify kinase and/or phosphatase dephosphorylation of the mitotic microtubule organizing centers. We will initially characterize the microtubule nucleation capacity of the centrosome in lysed cell models, and compare this activity with isolated centrosomes. Functional properties of kinetochores will be determined using isolated mitotic chromosomes. The phosphorylation state of the MTOCs will be analyzed by 32P incorporation and also the phosphate specific antibodies. The affect of dephosphorylation on the defined functional properties will be determined following in vitro dephosphorylation. The functional assays will then be utilized to screen fractions of mitotic cell lysates for appropriate enzymatic activities. Defining the role of phosphorylation in MTOC function is a key facet of a detailed understanding of the molecular basis for the regulation of cell division in general and the function of the mitotic apparatus specifically.